CAREER: Adaptive multilevel finite element methods with applications to biomolecules and gravitation

Holst
9875856
The investigator designs and analyzes effective numerical
techniques for solving certain classes of nonlinear elliptic and
parabolic partial differential equations on complicated domains,
arising in mathematical biology and gravitation. The work
focuses on adaptive multilevel finite element methods, a powerful
class of numerical approximation techniques for dealing with
irregular domain geometries, degenerate coefficients, and
complicated nonlinearities, in an optimal or nearly optimal way.
Specific target applications for this work are the nonlinear
Poisson-Boltzmann equation arising in continuum models of
biomolecules, the Hamiltonian and momentum constraints in the
Einstein equations, and some related elliptic and parabolic
equations that arise in the topological classification of
surfaces in geometry. While this work has a large theoretical
component, to have an impact in biology and physics requires a
substantial amount of software development, as well as
interdisciplinary collaboration with scientists in the relevant
areas. The required implementations are developed by the
investigator and his students as class library extensions to his
software package MC (Manifold Code), and the resulting software
is made available to researchers in the biology and physics
communities. This project is an NSF CAREER grant.
The computational methods developed in this project have a
direct impact on the modeling capabilities of rational drug
design researchers using structure-based models of biomolecules.
The Poisson-Boltzmann equation is a well-established model for
electrostatic interactions of biomolecules, allowing one to
predict the effectiveness of a candidate drug molecule in
negotiating the onion-like layers of the electrostatic field on
its journey to bind to the active site in a target biomolecule.
For example, through the use of these types of structure-based
numerical models, one can predict the effectiveness of a
candidate HIV proteinase inhibitor in binding to the active site
in the HIV proteinase. However, the Poisson-Boltzmann equation
presents severe technical difficulties for solution by numerical
methods on computers. By developing improved multilevel
numerical techniques to reduce the computer time required to
solve the Poisson-Boltzmann equation, and at the same time
producing more accurate solutions through the use of adaptive
finite element methods, the investigator gives drug designers
access to models that produce more accurate results in less time.
In addition, a critical ingredient for the success of this and
related projects is the education and training of the next
generation of computational mathematicians. Therefore, a fully
integrated involvement in undergraduate and graduate
computational mathematics education is an integral part of the
project. In particular, the investigator develops two new
project-oriented, interdisciplinary, computational mathematics
courses at UC San Diego, modeled after a successful experimental
course he taught at UC Irvine in 1997-1998. This project is a
National Science Foundation CAREER grant. NSF strongly
encourages the early development of academic faculty as both
educators and researchers. The Faculty Early Career Development
(CAREER) Program is a Foundation-wide program that provides for
the support of junior faculty within the context of their overall
career development. It combines in a single program the support
of quality research and education in the broadest sense and the
full participation of those traditionally underrepresented in
sciences and engineering. This program enhances and emphasizes
the importance the Foundation places on the development of full,
balanced academic careers.